Dynamical Systems

Four projects on the mathematical theory of dynamical systems are
proposed. Each project contains a cluster of problems with a common
theme. The first pertains to strange attractors with strong dissipation
and a single direction of instability. Extensions of a general theory
developed under a previous grant to arbitrary phase-dimensions are
proposed, as are applications to concrete problems such as nonlinear
oscillators. The second project concerns the statistical behavior of
dynamical systems with predominantly hyperbolic behavior. The focus of
the proposed research is on mechanisms leading to various rates of
correlation decay in both discrete and continuous times. The topic of
the third project is lattice dynamical systems. A systematic analysis
of the aggregate behavior of large numbers of dynamical systems coupled
together is proposed. The final project proposes dynamical systems
methods of solution for three unrelated problems on the Schrodinger
operator, kinematic fast dynamo and Navier-Stokes equations.

As a branch of mathematics, dynamical systems is concerned with
the time evolutions of processes governed by certain underlying laws.
A primary goal of the subject is to develop unifying mathematical
theories to explain observed phenomena and predict future occurrences.
In this proposal, the investigation of a number of models amenable to
mathematical analysis and with potential applications to the physical
and biological sciences is proposed. It has been known for some time
that relatively simple laws can lead to complicated dynamics. The
first part of this proposal focuses on systems with chaotic behavior.
Two topics are proposed: an analysis of strange attractors and a
statistical theory of mixing. (Strange attractors are highly complex
objects which capture the long term behaviors of dissipative dynamical
systems; they have been observed frequently in nature and in simulations
but have thus far resisted rigorous analysis.) Other projects proposed
include the relations between aggregate properties of large dynamical
systems and those of their individual components, and a few problems
from physics and hydrodynamics which the principal investigator
believes can be solved by the methods of dynamical systems.
Four projects on the mathematical theory of dynamical systems are
proposed. Each project contains a cluster of problems with a common
theme. The first pertains to strange attractors with strong dissipation
and a single direction of instability. Extensions of a general theory
developed under a previous grant to arbitrary phase-dimensions are
proposed, as are applications to concrete problems such as nonlinear
oscillators. The second project concerns the statistical behavior of
dynamical systems with predominantly hyperbolic behavior. The focus of
the proposed research is on mechanisms leading to various rates of
correlation decay in both discrete and continuous times. The topic of
the third project is lattice dynamical systems. A systematic analysis
of the aggregate behavior of large numbers of dynamical systems coupled
together is proposed. The final project proposes dynamical systems
methods of solution for three unrelated problems on the Schrodinger
operator, kinematic fast dynamo and Navier-Stokes equations.

As a branch of mathematics, dynamical systems is concerned with
the time evolutions of processes governed by certain underlying laws.
A primary goal of the subject is to develop unifying mathematical
theories to explain observed phenomena and predict future occurrences.
In this proposal, the investigation of a number of models amenable to
mathematical analysis and with potential applications to the physical
and biological sciences is proposed. It has been known for some time
that relatively simple laws can lead to complicated dynamics. The
first part of this proposal focuses on systems with chaotic behavior.
Two topics are proposed: an analysis of strange attractors and a
statistical theory of mixing. (Strange attractors are highly complex
objects which capture the long term behaviors of dissipative dynamical
systems; they have been observed frequently in nature and in simulations
but have thus far resisted rigorous analysis.) Other projects proposed
include the relations between aggregate properties of large dynamical
systems and those of their individual components, and a few problems
from physics and hydrodynamics which the principal investigator
believes can be solved by the methods of dynamical systems.